CAREER: Exposure-Resilient Cryptography

Abstract:
Exposure-Resilient Cryptography concerns the important problem of key
exposure and general information leakage. Exposure of such
information poses one of the most serious and common threats to
employing cryptography in real life. For example, cryptographic
computations (decryption, signature generation, etc.) are often
performed on a relatively insecure device (e.g., a mobile device or an
Internet-connected host) which cannot be trusted to maintain secrecy
of the private key. Thus, the goal of Exposure-Resilient Cryptography
is to design solutions that will limit (or even completely eliminate)
the negative consequences of such an exposure in various cryptographic
scenarios. In particular, this research concentrates on the design of
various key evolving schemes and the problem of partial key exposure.

The paradigm of secret key evolution over time invloves updating one's
secret key such that key leakage at given period(s) compromises the
security of other periods to the minimal extent possible. The
investigators examine two such models. Forward-secure schemes update
secret key locally, and seek to protect the security of all the past
periods when the current key is exposed. In contrast,
bidirectionally-secure schemes use secure key updates, but protect
all non-exposed periods: both in the past and in the future. In
either model, the public information (e.g., public keys) are not
affected by the secret key evolution. The problem of partial key
exposure concerns the scenario where most but not all secret
information has been leaked. The main question studied in this setting
is how can valuable secret information be stored or represented in
such a way that almost complete exposure of its representation still
guarantees the secrecy of the actual, embedded secret?